Travel to Attend: International Conference on the Indoor Environment of Buildings; Singapore, Republic of Singapore; January 24-26, 1985

Travel support will be provided to allow a participant to deliver a paper at the International Conference on the Indoor Environment of Buildings, to be held in Singapore, Republic of Singapore, January 24-26, 1985. The conference will provide an international forum for the exchange of scientific information on principles and inter-relationship of acoustics, lighting, and thermal design of indoor environments of buildings.